Contemporary Calculus and Precalculus Lead Teacher Development

North Carolina School of Science and Mathematics (NCSSM) is offering a four year program to create a network of twenty-five pairs of high school lead teachers from across the nation to disseminate exemplary materials in precalculus and calculus developed by the NCSSM faculty. The participants will attend a series of residential summer workshops and will return for progressively more advanced curricular work and leadership training over the course of three summers. During the school year they will be supported with an annual conference, a quarterly newsletter, and on-line conferencing, and thee teams will share the new concepts and materials with other teachers in their regions. Non-NSF sources will provide cost sharing of 24% of the award.